New Optical Switching Device

This effort relates to the fabrication and demonstration of a new all-optical switching device. Such elements are crucial to proposed developments of optical signal processing technuques. This effort will involve fabrication and experiments at an institution which is establishing a considerable effort in this area and in the lightwave area generally.